Evaluation of the Global Learning to Benefit the Environment (GLOBE) Program: A Systemic Approach

This project will conduct an overall evaluation of the GLOBE program. The evaluation will document the program's progress in achieving its objective of improving student understanding of science by involving students in real science. SRI will conduct an implementation evaluation and an outcome evaluation. The implementation evaluation will analyze the GLOBE educational materials, teachers' access to technology, the influence of standards and teaching practice. The outcome evaluation will measure the impact of GLOBE on student learning.